A CCD Spectrophotometer for the Etelman Observatory: A MRI Development Proposal

AST-0115612
Adelman

A low-cost spectrophotometer for use with a new 0.5 meter telescope at the Etelman Observatory of the University of the Virgin Islands will be designed, fabricated, tested, aligned, calibrated. It will be integrated with CCD detector and will have a spectral resolution of 6.5 and 13 angstroms over the spectral range between 3,300 and 9,000 micrometers wavelength. The science proposed will compare stellar fluxes measured with this instrument with model atmospheres to improve determination of effective temperatures and to study chemically peculiar stars. This small non-PhD granting institution has a large education program that will engage many students in the use of this telescope both for teaching and for undergraduate research.
***